EPWG: Learning Mathematics Through Transactional Writing

9554188 Austin This project will determine how transactional writing, i.e., writing used to develop, construct and express mathematical understanding, effects females' achievement in, and attitude toward, their college and middle school mathematics classes. The project will target three different groups of student participants in the basic and intermediate college algebra sequence, as well as in one group of participants in a three-year middle school mathematics sequence. College level achievement will be measured by the Elementary Algebra Skills test; the Stanford Achievement Test will measure achievement on the middle school level. Attitude toward math will be measured by the Revised Mathematics Attitude Scale. Teams of mathematics and English faculty investigators, and their female students, from a large, urban two-year college and participating middle schools from a large, urban public school system will create an academic community through the use of the college's electronic bulletin board. The project will intervene at the two critical points that hinder girls staying with and succeeding at mathematics and hence, women successfully pursing mathematics-based careers and reaching higher income levels: lack of achievement and poor attitude. Transactional writing can be an instrument in the construction of knowledge and the reshaping of beliefs. Writing about math helps students more easily learn mathematical concepts. Students from middle schools and a community college will use a technique called transactional writing to make them active learners. This, along with mentoring and career counseling, will help them become more interesting in math and science careers. ***